Solids and Polyanion Clusters with Oxovanadium and Oxomolybdenum Cores

This award in the Inorganic, Bioinorganic, and Organometallic Chemistry Program provides continued support for research on vanadium phosphates by Dr. Jon Zubieta of the Chemistry Department, Syracuse University. A variety of synthetic techniques will be used to produce novel structures containing vanadium oxide and phosphate. Hydrothermal methods will be used to produce large polyhedral arrays of these components, and attempts will be made to incorporate other metals such as Ti, Zr, Mn, Fe, and Mo into the arrays. Arrays with different arrangments will be prepared from vanadoarsenates and vanado-organoarsonates. Polyfunctional ligands will be used to connect clusters together into nanometer-scale structures. All types of arrays will be structurally and magnetically characterized, and tested for their ability to incorporate organic cations. The long-term goal of this research is to develop rational sythetic procedures for microporous materials based on transition metal/oxoanion frameworks. The synthetic conditions needed for sythesis of these materials are not well known, but molecular arrays with a great variety of structural features have been prepared. Because these compounds are thermally stable, they are attractive candidates for cataysts and catalyst supports, whose variety of structural forms could produce catalysts of various selectivities and reactivities.